A New Non-Destructive Measurement of Plastic Strains

This is a feasibility evaluation of a new method to evaluate plastic strains in the interior of solids caused by loading, simple from measurements of surface displacements. The measurement may be performed by holography, for instance. Most testing methods are capable of measuring microstructures, residual stresses, and defects of materials located near free surfaces. However, no method is currently available for measuring plastic deformations in the interior of solids. The principle of this novel method is based upon an inverse application of the boundary integral equation method (BIEM). The body forces due to plastic strains form the boundary values of displacements and tractions on interfaces in BIEM. The body forces can be determined inversely from the boundary values of displacements.